CPS: Small: Formal Analysis of Man-Machine Interfaces to Cyber-Physical Systems

The objective of this research is to develop formal verification tools
for human-computer interfaces to cyber-physical systems. The approach
is incorporating realistic assumptions about the behavior of humans into
the verification process through mathematically constructed "mistake
models" for common types of mistakes committed by the operator during
an interactive task. Exhaustive verification techniques are used to
expose combinations of human mistakes that can lead to system-wide
failures. The techniques are evaluated using case studies involving
medical device interfaces.

The problem of verifying human-machine interfaces requires new
approaches that combine rigorous formal verification techniques with
the empirical human-centered approach to user-interface evaluation.
The research addresses challenges of integrating empirical user-study
data into formal game-based models that describe common types of
operator mistakes. Using these models to detect subtle
flaws in user-interface design is also a challenge.

It is well-known that a poorly designed interface will enable harmful
operator errors, which remain a major cause of failures in a wide
variety of safety-critical cyber-physical systems. This project will
automate user-interface verification by detecting likely defects,
early in the design process. Open source verification tools will be
made freely available to the community at large. The ongoing research
will be integrated into a set of graduate-level computer science
courses focused on the theme of "Safety in Human Computer Interfaces".
Results from the project will also be integrated into educational
materials for the ongoing eCSite GK12 project with the goal of
promoting awareness of user-interface design issues amongst high
school students.